Mathematical Sciences: Nonlinear Continuum Mechanics

9404580 Coleman A study will be made of the governing equations of a nonlinear theory of the dynamics of elastic rods that is complete to within an error of order 2 in a rod's thickness, curvature, twist, and stretch. As the theory does not presuppose that displacements and rotations are small, its governing equations are not linear. Recent numerical experiments have indicated that these equations are approximately but not completely integrable in the sense of the theory of solitons. As a first step toward the development of a theory of the vibrations of structures whose elements obey the nonlinear theory, information will be sought about the qualitative properties of solutions for boundary data appropriate to such single elements as cantilever beams. Other problems under investigation in rod theory bear on issues that arise in theories of the tertiary structure of DNA molecules. To have a theory of the dynamics of rods that accounts for internal dissipation, the theory of elastic rods will be generalized to one appropriate to nonlinear viscoelastic materials. In a separate area of research, a study will be made of the role of nonlinear effects in the theory of the stability of solid bodies against changes of shape caused by surface diffusion. Recent research has shown that a familiar result in the linearized thery of the stability of circular cylinders against surface diffusion, to the effect that a cylinder is stable against all sinusoidal perturbations of wavelength less than the circumference of the unperturbed cylinder, must be modified when nonlinear terms in the governing equations are taken into account.The research to be performed under the project on the mechanics of rods is expected to have implications for the design of methods of controlling the vibration of structures, for understanding factors that affect the stability of motions of helicopter rotor blades, for obtaining an understanding of the phenomenon of supercoiling in DNA, and for finding the mechanisms of the action of the enzymes called topoisomerases. The work on the stability of bodies against surface diffusion bears on several important problems concerning the durability of ohmic conductors in micro-electronic devices and the design of micro-electromechanical devices.